Science Technology: Knowledge and Skills

The Science Technology: Knowledge and Skills curriculum project, (SciTeKS), will fill the void of science-oriented technical courses in Tech Prep and similar school-to-work transition high school programs. The project is designed to develop printed and multimedia student and teacher materials for large context modules involving chemistry, biology, and earth/space sciences. The development will include curriculum design recommendations and models, multimedia instructional and reference materials for students, suggestions and models for implementation, support for teachers, and guidance for assessment. The curriculum will be designed to develop in high school students skills in teamwork, problem solving, communication, and other capabilities considered critical for their success in the workplace and/or in further education. The SciTeKS project will provide a two-year science curriculum for a variety of school-to-work programs. Students completing SciTeKS will be ideally prepared to enter immediate employment or college technician programs based on biology, chemistry, or earth/space sciences. The pedagogical strategies will be developed by a team of high school, college, and